U.S.-France Cooperative Research: Virtual Compton Scattering

*** 9603218 Hyde-Wright This three-year award for U.S.-France cooperative research in nuclear physics involves faculty, students and postdoctoral researchers at Old Dominion University and at the Universite Blaise Pascal in Clermont-Ferraud, France. The award will provide travel support to Charles E. Hyde-Wright and his colleagues to collaborate with Pierre-Yves Bertin and his research group. The research is primarily focused on physics opportunities at the Continuous Electron Beam Accelerator Facility (CEBAF) in Newport News, Virginia. The objective of the U.S. investigators' travel to France is to work on measurements and analysis from their experiments in virtual compton scattering (VCS) and to provide research opportunities for graduate students. The project takes advantage of the complementary experimental and theoretical expertise of the U.S. and French investigators. ***